CISE Postdoctoral: Modeling and Measuring the Appearance of Materials for Computer Graphics (ECS Associate)

Photorealistic image synthesis is one of the most fundamental problems in computer graphics, with
a wide variety of applications. In recent years, tremendous progress has been made in the
simulation of light transport and the resulting lighting effects. Unfortunately, the underlying
material models are, by comparison, primitive and assume that the materials are both pristine and
immutable, even though real materials are neither. This severely limits the range of appearances
that can be produced. This research program will focus on the development of computer graphics
models for materials, which will be suitable for the requirements of image synthesis.

During the award period, the research will address two key aspects of this problem: (1) Taxonomy
of materials: a study of a wide variety of materials will be conducted in order to devise a
classification of materials that is appropriate for computer graphics. (2) A measurement device: a
portable device for measuring surface appearance properties in the field will be designed,
simulated, and eventually constructed.

The research program will be integrated with a training plan that will afford the postdoctoral
associate a variety of opportunities for professional development.